Computer Education for Undergraduates in Meteorology/ Climatology and Geographic Information Systems: An Integrated Approach

The purpose of this project is to develop a meteorology/geographic information systems computer network that allows the exchange of raw data and finished products between the meteorological and geographic information systems (GIS) laboratories. Each laboratory consists of a local area network (LAN) comprised of a file server and several workstations, with appropriate printers, plotters and other peripherals attached as shared resources. These laboratories allow students to analyze and display meteorological, climatological and geographic data in non-traditional ways. One laboratory is primarily devoted to meteorological data display and analysis using the NSF-funded Unidata data stream and PC-McIDAS display and analysis software. The second laboratory is used primarily for geographic information systems (GIS) applications using both raster- and vector-based software. The laboratories are joined through the University computing network (HuskerNet) to allow data interchange between LANs. The synergistic relationship of the laboratories creates a unique environment for innovative undergraduate education and research. Existing courses in meteorology-climatoloqy and GIS are improved by the up-to-date computer equipment and the expanded capabilities allow additional courses to be added to these programs. The coupled laboratories allow an emphasis of the inseparable nature of the physical world and societal activities in courses and provide a model program for other departments around the country.NSF grant funds are being matched with funds from non-federal sources.